U.S.-Germany Cooperation on Direct Measurements of ResonanceStrengths Associated with Low Temperature Hydrogen Burning for Nuclei Near Mass 21

This award supports Professor Albert J. Howard, Jr., of Trinity College, Connecticut, for a three month visit to Germany to collaborate with Claus Rolfs and his group at the Institute for Nuclear Physics of the University of Muenster. They will work jointly on several projects of mutual interest in nuclear astrophysics. Professor Howard brings substantial experience in low energy nuclear physics experimentation; Professor Rolfs, too, is heavily involved in experimental research in complementary fields of nuclear astrophysics. They will investigate the role of low-temperature hydrogen burning in the creation of the elements in the vicinity of the Neon/Sodium and Magnesium/Aluminum nucleosynthetic cycles. Professor Howard will participate in established experimental programs currently ongoing in the German laboratories directed by Professor Rolfs in Muenster and Bochum. This will involve direct measurements of individual resonance strengths associated with the (p,gamma) reaction on pertinent nuclei. Such measurements can readily be made at the world- class facilities in the Bochum-Muenster area; a specialized gamma ray detector has just been developed there that will provide improved sensitivity for resonance studies of the type proposed. Where the size of the Coulomb barrier prohibits or impedes direct measurement, Professor Howard will contribute his expertise in indirect determination involving measurements of angular distributions to obtain single-particle transfer strengths. During the past decade, it has become increasingly clear that low-temperature hydrogen burning may play an important role during a final stage of stellar nucleosynthesis. This possibility emerges from a synthesis of observations involving meteoritic chronology, gamma-ray astronomy, and low-energy proton resonance strengths associated with the Aluminum nucleochronometer. It now becomes important to determine the reaction rates for other critical reactions associated with this and nearby related processing cycles. The proposed measurements will provide information crucial to the determination of the viability of this process for synthesis of nuclei in the atomic mass 20-30 region. In particular, the results may shed light on the possibility that the final reprocessing of the elements occurred prior to the formation of the solar system.